Cubature Formulae and Orthogonal Polynomials in Several Variables

Abstract: The project continues an ongoing program, the aim of which is to
establish a workable theory for orthogonal polynomials (OP) in several
variables and use the knowledge to construct cubature formulae (CF), synonym
for higher dimensional numerical integration formulae. A general framework
has been developed by the P.I. in the first phase of this program, including
an extensive theory of OP in several variables based on a new vector-matrix
notation and a systematic study of the relation between CF and the common
zeros of (quasi-)OP. The main focus of this project is on OP and CF on the
unit sphere, on the unit ball and on the standard simplex of the Euclidean
space. The starting point is a recent observation made by the P.I. that
orthogonal structures on these domains are closely related, which has led to
new understanding about OP on these classical domains and to a powerful new
method for constructing CF. Special attention will be given to the structure
of OP and CF that are invariant under certain groups, such as octahedral group
or symmetric group of the simplex, which has a close relation to the recent
development of h-harmonics associated to the reflection groups.

Cubature formulae and orthogonal polynomials in several variables have
fruitful connections with many branches of applied mathematics such as
numerical integration, approximation, coding theory, data fitting, numerical
solution of differential equation, finite element methods to name a few. CF
itself is essential for practical evaluation of high dimensional integrals,
which is one of the basic questions in numerical analysis and is often taken
as a test problem in high speed computing. The present project seeks new
understanding of the nature of CF and OP in several variables. Its aim is to
determine the precise relationship between orthogonal structures on the sphere,
the ball, and the simplex, especially analytic relations which will lead to new
progress on convergence of the orthogonal expansion, and to develop practical
method that will yield new effective numerical integration formulae on these
domains, especially on the unit sphere.